Research Initiation Award: A Two-Level Hierarchical ControlModel for the Dynamic Operation of Manufacturing Cell Systems

A hierarchical model that integrates database and control is developed for the dynamic operation of manufacturing cell systems. Within the manufacturing control hierarchy, the cell control micromodel can function autonomously for the logic control of machines and robot move sequence in the cell. With a relational database structure containing required process data, shop production orders are decomposed through run-time database queries in constructing the corresponding cell control commands. This research incorporates a novel approach of integrating data, control, and the cell operating characteristics metamodels and endows the system with a closed-loop ability in dealing with multiple dynamic events inherent in manufacturing cell system operations.